Gathering of Wild Plants as an Economic Strategy of Women

This research planning grant will allow Dr. Moreno-Black to conduct a pilot study of the impact of the introduction of an irrigation scheme on the subsistance activities of women in rural Thailand. This is an important topic and this small award will allow her to develop the basis for an expanded independent research program.